Tailored Nano-structured Coatings via LII-Controlled Flame Synthesis Followed by 'Resonant Impaction'

ABSTRACT: Proposal Number: CTS 9871885 Principal Investigator: D. Rosner, J. de la Mora, M. Long, W. Tong This proposal was submitted in response to the Nanotechnology Initiative (NSF 98-20). The award is to support the interdisciplinary science and technology behind producing controlled nanostructured coatings at high deposition rates by circumventing the presence of aggregates. The proposed work involves the following parallel activities: High flux flame synthesis of aggregates comprised of nearly mono-sized nanometer spherules with controlled dimensions, properties, and strength; the development of laser induced incandescence to obtain aggregate parameters on line; resonant impaction to break the aggregate into primary spherules and to obtain pre-sintered coatings of controlled granular density and morphology; post deposition treatment to optimize the properties of the resulting ceramic or metallic coatings. Successful completion of these projects would provide high throughput production of nano-phase materials with a simple and environmentally sound process.